Analog Circuit Instructional Improvement

The Analog Circuits Laboratory Project aims at major curricular revisions in the Electronic Engineering Technology program. Specifically, the analog circuits sequence is changed from an emphasis on circuits as closed systems to signal processing building blocks used to implement larger systems. This change results in an increase in systems-level and frequency-domain analyses. Computer-based tools and circuit simulation techniques are integrated into existing courses. The Tektronix 2630 Personal Fourier Analyzer and system controller are the major instruments purchased and are accompanied by Microsim PSPICE Circuit Simulation software. The students maximize their performance through computer-based analysis and simulation tools. Following the design, the circuits and subsystems are built and tested for verification of performance in both the time and frequency domains. The project responds to the shift in engineering practices in industry and targets curricular revisions which parallel the changes in the work place. The award is being matched with a greater amount, 104%, by the principal investigator's institution.